Polar Research Board Core Support

The Polar Research Board (earlier called the Committee on Polar Research) was established in 1958 by the National Academy of Sciences, in response to the need for scientific advice on the increases in U.S. and international activities relating to the polar regions. The Board is a multidisciplinary body with representation from four broad areas: the social, biological and physical sciences as well as engineering. Members are drawn from academic institutions, national laboratories and industry. The activities of the Polar Research Board are funded by a wide range of government agencies, including the Department of Energy, the National Aeronautics and Space Administration, the National Oceanic and Atmospheric Administration, the Office of Naval Research, the United States Coast Guard, the U.S. Geological Survey, as well as the National Science Foundation (NSF). This grant provides the NSF portion of support to the Board. Activities of the Board during the grant period include development of a national polar research plan, providing federal agencies with advice on the role of arctic and antarctic research in studies of global change, examination of current issues in glaciology, representing the United States on the Scientific Committee on Antarctic Research, ensuring active U.S. scientific participation in the International Arctic Science Committee activities, as well as completing a series of studies relating to more detailed problems of polar research.